TAKING THE LEAD; Deans' Summit on Technological Literacy

Engineering - Other (59)

Taking the Lead is a highly participatory conference bringing together Deans of Education and Engineering to form collaborations and to discuss the positive impact that such partnerships can have on the technological literacy of future K-12 teachers. This is the first time that education and engineering leaders have come together in a formal meeting. The potential benefits of these collaborations are numerous. Engineering programs can provide educators with technical expertise and real world applications of science and mathematics. Schools of education have much to contribute to engineering schools in terms of effective pedagogy, instructional design, and assessment. The outcomes of this conference will be an overall strategic plan that has broad impact on campus reform and specific action plans for the individual institutions represented.